Intercalation of Organic Polymers in Inorganic Layered Materials

9306385 Kanatzidis In the work, technologically significant conjugated and saturated polymers are intercalated into lamellar hosts. Studies on the (polymer) hydrated vanadium pentoxide and (polymer) iron oxychlorides will continue to better understand their structure and properties. Experiments to gain insights into the degree of polymerization of the conductive polymers in these materials are proposed. Based on the n-type to p-type transition which occurs as a function of x in (polymer) hydrated vanadium pentoxide, the behavior of p-n diodes will be studied. Single crystals of polyanaline/iron oxychloride will be explored by crystallographic analysis and charge transport measurements. In what constitutes a new research direction, new methodologies will be developed to include other layered hosts, which are not amenable to in-situ intercalative redox polymerization. A variety of new conjugated polymer/inorganic intercalation compounds will be prepared. These new hosts include uranyl phosphate, zirconium phosphates and phosphonates, molybnenum oxides and transition metal dichalcogenides. In addition to conjugated polymers, saturated polymers will be used to prepare novel molecular scale nano- composites with layered inorganic hosts. A full physico-chemical characterization of these materials is proposed. ***